Request for Block Travel Funds 1986 25th IEEE Conference on Decision and Control, Athens Greece, December 10-12, 1986

The Control Systems Society of the IEEE will hold its 25th annual meeting, the Conference on Decision and Control (CDC), in Athens during December, 1986. The conference is generally considered the premier control theory conference in the world, and holds a wide variety of both applied and theoretical sessions ranging from robotics to adaptive control, computer-aided design, system identification, process control, automated manufacturing, etc. It generally attracts around 700 attendees, and produces high quality proceedings.